CONCEPT: Connecting Content and Pedagogical Education of Pre-service Teachers

The primary goal of the project is to enhance secondary mathematics teacher education for pre-service teachers by developing, implementing and disseminating resources from a four-course curriculum that brings together the study of mathematics content and pedagogy. Three of the courses are problem-based technology enhanced (PBTE) courses in Algebra and Calculus, Geometry, and Probability and Statistics. A fourth course is a capstone course in Teaching and Learning Secondary School Mathematics. The courses are motivated by reform-based ideas and will depend on research on learning, standards based curricula, multiple forms of assessment and proven strategies for integrating technology into mathematics education. Curriculum materials are being tested at several pilot sites.